Parallel Algorithm Design: From Theory to Practice

PI: Ramachandran, Vijaya
Institution: U of Texas Austin
Proposal Number: 9988160

A. Project Summary
An important goal in parallel processing is the development of general-
purpose parallel models and algorithms. The challenge here has been to find
the right balance between simplicity, accuracy and broad applicability. This
project will develop a comprehensive collection of parallel algorithms suitable
for practical use by working with three general-purpose parallel computation
models that have been proposed over the last decade | Bulk-Synchronous
Parallel (BSP), LogP, and Queuing Shared-Memory (QSM) models | as
well as with the external memory Parallel Disk Model (PDM). Some uni-
fying themes for the design of efficient algorithms on these models will be
developed, and these will form the basis for a systematic development of al-
gorithms on these models. The algorithms to be developed will range from
kernel algorithms for basic primitives to algorithms for important applica-
tions.
The research will expose unifying themes relating these well-
known models, and will result in fast and efficient parallel algorithms with
good performance on a wide range of parallel machines for large problem sizes
typically seen in practice. Additionally, this research will provide insight into
the fundamental benefits and limitations of parallel processing through the
investigation of asymptotically optimal algorithms and lower bounds.